Research Site of the I/UCRC entitled"Repair of Building and Bridges with Composites "

The Research Site of the Industry/University Cooperative Research Center (I/UCRC) entitled "Repair of Buildings and Bridges with Composites (RB2C)" at North Carolina State University is an extension to the currently active I/UCRC located at the University of Missouri-Rolla. The research site at North Carolina State will focus on addressing the needs of the construction industry in development of new and innovative structural components as well as strengthening/repair methods for existing structures using advanced composite materials. The primary research activities of the site will involve: use of the three-dimensional weaving technology, developed by the College of Textiles at North Carolina State University in cooperation with the textile industry and the fiber producer; Installation, understanding, manufacturing and use of more durable construction materials; Examination of the durability of the proposed advanced construction materials under severe environmental conditions using the unique environmental chamber installed at the Constructed Facilities Laboratory (CFL), North Carolina State University; Develop new construction materials for rehabilitation of steel structures using high strength and modulus composite materials; and Standardization and code approval of products and design control, education and transfer of technology to industry.